Improvement of Chemistry Laboratory Experiences with GC-FTIR

The application of the principles of the Fourier transform to spectroscopy has revolutionized spectrophotometric instrumentation. This project incorporates GC-FTIR into the laboratory experiences at Adrian College. The goals of the project are to provide student access to modern infrared spectroscopic instrumentation for the enhance of the laboratory experience and to promote the concepts of Fourier analysis by providing an example of a Fourier transform spectrometer. The GC-FTIR is used by the students for analysis and spectral identification and interpretation of purified organic reaction products, separation of mixtures of organic compounds and subsequent identification by infrared analysis. In addition the FTIR provides a powerful example of the benefits of Fourier transforms and analysis. The institution is matching the NSF grant with an equal amount of funds.